Doctoral Dissertation Research: The Second Coming of First Nations: The Reassertion of Indigenous Voices Through International and Human Rights Law

9520873 Riding In The last several decades have witnessed a dramatic increase in the use of international and human rights law to resolve conflicts. Increasingly, indigenous peoples are turning to international law in efforts to achieve greater self-determination. This project will involve a preliminary evaluation of the capacity of international and human rights law to address these efforts. It will be based on a case study of one American Indian nation's involvement in the international legal arena as part of a worldwide movement. The case study will draw upon fieldwork in the local, national, and international contexts in which this group works. %%%% The last several decades have witnessed a dramatic increase in the use of international and human rights law to resolve conflicts. Increasingly, indigenous peoples are turning to international law in efforts to achieve greater self-determination. This project will involve a preliminary evaluation of the capacity of international and human rights law to address these efforts. It will be based on a case study of one American Indian nation's involvement in the international legal arena as part of a worldwide movement. The case study will draw upon fieldwork in the local, national, and international contexts in which this group works. ****